Supercomputing Time for Research on Three Engineering Problems

Three problems are being studied for numerical solution using supercomputing. The first is to determine the flow and base pressure at the rear of a rocket-propelled missile or vehicle in transonic flight. Contradictory prior results, both numerical and experimental, would be resolved for this important problem by the analysis.